Strain Distributuion in the Human Mandible

9307969 Hylander Both Experimental research and theoretical biomechanics have contributed to current understanding of mandibular function. What remains unkown, however, is how well theoretical models correspond to actual mechanical behavior of the mandible. Through experimental observations, this project will provide an empirical foundation from which to evaluate the accuracy of theoretical biomechanical models of the mandible, and to establish data base from which more realistic theoretical models can be developed. The results will be important not only to understanding the forces impinging on the human mandible, but to differing forces among primate species. *** cknowledgment of National Science Foundation assistance should be made in publications that may result from this research. Such acknowledgment also may be freely made to interested persons while the research is being conducted, provided care is taken to avoid giving the impression that Foundation financial support for your research means that the project is undertaken by or on behalf of the Foundation itself, or any other agency of the United States Government. , ' , ! ! F , , E Times New Roman Symbol & Arial 1 Pres Elite 5 Courier New " h Oz EOz E 7 DEBRA TERESA WHITE DEBRA TERESA WHITE